REU Site: Summer Program for Interdisciplinary Research: Emerging Interface Technologies

esearch in human computer interface technology is becoming increasingly
important given that powerful, portable, interconnected and ubiquitous
computers are transforming nearly every aspect of our lives. Applications of
these emerging technologies are increasingly evident in nearly every
discipline. There is a growing demand in both industry and academia for
individuals who have the interdisciplinary perspective and multiple skill sets
necessary to leverage this new technology. The Summer Program for
Interdisciplinary Research at Iowa State University will be a 10 week
interdisciplinary summer experience for undergraduates focused on integrating
research and education in emerging interface technologies. Students will be
provided with classroom training and gain hands-on research experience using
cutting-edge instruments, equipment, computers and technological
infrastructure. The program will enhance the recruitment, retention and
graduation of United States students by providing interdisciplinary experience
and information technology skills in scientific, technological, engineering
and mathematical disciplines. These students will help the United States
maintain a strong information technology workforce necessary for global
competitiveness.